Gravity Study of the Rennick Graben and the Campbell Block in Northern Victoria Land, and the Relation of the Rennick Structure to Rifting Processes in the Ross Sea

Northern Victoria Land offers the widest cross section of the Transantarctic Mountains, a major mountain range that separates East and West Antarctica and appears to be produced by extension and rift shoulder uplift rather than by compression. An important graben structure, the Rennick Graben, in Northern Victoria land may be an extension of the Terror Rift in the Ross Sea. Virtually no land-based geophysical data exist for this important region. This investigation will acquire and interpret gravity data over the Rennick Graben structure and the Campbell Block, an apparently unbroken piece of continental crust that separates the Rennick structure from the Terror Rift. The goals of this work are to define the Rennick structure gravimetrically, to trace the structure southward across the Campbell Block toward the Terror Rift, and to study the isostatic compensation mechanism for the Rennick structure. This will be a cooperative project with the Bundesanstalt fur Geowissenschaften, Federal Republic of Germany, which will provide the logistics for this work during the German Antarctic Northern Victoria Land Expedition (GANOVEX V) in the 1988/1989 field season. The Principal Investigator has been invited to lead the gravity study as an invited U.S. participant of GANOVEX V. The gravity data would be integrated with other geological, structural, magnetic and seismic refraction studies of the GANOVEX V expedition in terms of the larger Transantarctic Mountain problem and the nature of the mantle anomaly that might be the underlying cause of the Transantarctic Rift System.